CISE Research Instrumentation: Research Equipment for Robot Vision and Control

A color camera, real-time data processing boards, and a robot arm shall be procured in order to support several research projects in robotics. These include: * 3D vision in extreme clutter and partial occlusion. * 3D orientation determination from image spectra * Fast vision algorithms. * Vision-based supervisory control of dual-arm robotics system. The research results stemming from these projects will be integrated in a manner so as to promote technology transfer to the aerospace electronics industry.